Discrete Approximations in Variational Problems

9704912 Hager This proposal concerns the numerical analysis of infinite dimensional variational problems such as variational inequalities involving ordinary differential equations, differential inclusions, and optimal control problems. Using recent stability results, errors estimates will be derived for discrete approximations of state constrained optimal control problems. For linear/quadratic problems with control and state constraints, efficient algorithms will be developed for computing a solution. In addition, the stability theory will be applied to generate both a priori and a posteriori estimates for the errors in the computed solutions. For differential inclusions, discretizations will be developed with sufficient generality to encompass problems with discontinuous right sides and state constraints. The algorithms and theory that will be developed in this proposal are applicable to a variety of problems in industry such as those associated with the optimal performance of robots, flight control in aerospace, the design of thin films with desired properties, or the optimal engineering of chemical processes. When any of these problems is solved on a computer, the continuous process is decomposed into tiny time steps. This proposal studies the errors that are caused when this continuous process is discretized in this way.